Planning a Visit to the University of Tokyo for Collaboration on Humanoid Robotics Research

OISE-0609094
Mukherjee, Ranjan (Michigan State University), Planning Visit to the University of Tokyo for Collaboration on Humanoid Robotics Research

This proposal is for a planning visit to Japan to strengthen a collaboration with University of Tokyo Professor Yoshihiko Nakamura in the area of humanoid robotics, specifically concentrating on human-like gaits for humanoids. The proposed work adopts a multi-faceted approach drawing on mechanical engineering and kinematic and kinetic analyses to impart new capabilities in humanoids through collective investigation of problems in multiple technical areas. The U.S. research team includes the PI, Professor Gordon J. Alderink of Grand Valley State University, and one graduate mechanical engineering student from Michigan State University. The planning visit will also include visits to humanoid robotics labs and research centers at Waseda University, National Institute of Advanced Industrial Science and Technology (AIST), Advanced Telecommunications Research Institute (ATR), and Sony Corporation.